IRDS: An Interoperable Recursive Database Server

9361905 Leung This research will develop the architecture for an interoperable recursive database server (IRDS). The server will communicate with clients based on DAL, an industrial standard on data access language supporting heterogeneous database environments. Recursive views defined with powerful logic rules are supported. Queries on recursive views will be automatically translated into equivalent database operations on the base relations. The translation is based on pre-complied information obtained from the analysis of the structure of the recursion during view definition. A toolkit and a prototype will be developed as a feasibility study. There are not many databases in existence today which contain the type of features described in this proposal. Therefore such features will embelish the performance of database systems.